CAREER: Next Generation Network Coding: Distributed Design Via Coded Feedback

The exponentially increasing demands for heterogenous services
over Internet and wireless networks have imposed new urgency
and great challenges for designing next-generation networks
that achieve higher throughput, better resiliency to adversary
attacks, and stronger security for sensitive information.
Recently, a new network coding paradigm has emerged, which
potentially achieves the above goals simultaneously in an
optimal fashion. Nonetheless, to realize fully its promised
benefits requires a clean-slate methodology of network code
design that achieves optimal performance and maintains low
complexity while reacting quickly to the ever changing network
environment.

To that end, the investigators study coded feedback, which
generalizes the conventional feedback mechanism that
acknowledges non-coded traffic by incorporating the unique
algebraic structure of network-coding. This research first
explores the joint algebraic properties between coded forward
and feedback packets, which are the basis for the subsequent
development of new, efficient network protocols for next
generation network codes. In particular, the investigators are
interested in the roles of coded feedback that transform the
non-coding network resource allocation algorithms to their
coding-oriented counterparts. The rich information carried by
coded feedback is then used to design protocols that offer
enhanced global and local error protection and data security
while self-adapting to network changes. The theoretic studies
of this program follow closely practical considerations
including the dynamic channel quality and the interference
nature of wireless networks and the complexity of the resulting
protocols. System-level implementation is used to verify and
further refine the theoretic findings of this program. The
coordinated approaches of coding theory, graph theory, and
network optimizations provide valuable interdisciplinary
training for students with Purdue University.